Topics in Stochastic Control

This research program concerns several topics in stochastic control
theory and related areas of applied probability and nonlinear partial
differential equations. One topic is risk-sensitive control on an
infinite time horizon, motivated by problems of robust feedback
controller design for nonlinear systems. Another application of
risk-sensitive control is in mathematical finance, including dynamic
portfolio allocation problems on long time horizons. Yet another
research topic concerns first order partial differential equations of
Hamilton-Jacobi-Bellman type. While such equations are nonlinear in the
usual sense, they are linear with respect to max-plus algebra
operations. This allows for approximate solution via max-plus basis
expansions. Finally stochastic control models for economic growth and
debt which arise in international finance are being studied.

Stochastic control provides a framework for modeling and analysis of
dynamic decision making in the presence of uncertainty. The method of
dynamic programming provides a way to obtain optimal stochastic control
policies by solution of corresponding nonlinear partial differential
equations. The research funded through this grant is motivated by a
range of applications in engineering and financial economics, including
robust feedback controller design, nonlinear estimation and filtering
and optimal dynamic investment allocation. In international
finance,growth/debt models are considered in which the goal is to choose
national investment and consumption policies which optimize a suitably
chosen criterion subject to imposed constraints. The model performance
under optimal control may provide benchmarks to suggest whether actual
current account deficits and levels of foreign debt are sustainable
under current policies.